Highly Successful Schools or Programs for K-12 STEM Education: A Workshop

The Board on Science Education and the Board on Testing and Assessment of the National Research Council propose a workshop to examine issues around successful K-12 STEM education programs or schools with an eye toward what might merit replication and scale-up with regard to successful programs in STEM. A special committee will be appointed to conduct the workshop and workshop activities and the tasks include:
1. Identifying a range of critical goals for highly successful K-12 STEM education
2. Exploring the criteria for identifying schools and programs successful to those goals
3. Classifying strategies and educational practices that schools and districts use to achieve success in STEM and identify scalable best practices associated with those strategies and practices

Both a letter report and a proceedings of the workshop will be developed.